CART-STAVE: Complex and Real-Time Systems: Testing, Analysis, Validation and Evaluation

While much significant work has taken place in safe monitoring of non-real-time, conventional programs, very little has in fact been done for real-time programs, and especially for real-time programs that implement complex safety-critical functions and operate in distributed and parallel environments. In this project standard compiler static analyses and prior analysis and transformation results for reducing complexity in real-time programs are combined to support safe and non-intrusive monitoring of complex real-time programs. Existing transformations frequently result in idling and delaying non-functional code that is introduced to provide time- preserving balance across alternate branches of a conditional or alternate combinations of resource requests. These segments of nonfunctional code can be used to insert non-intrusive software hooks to monitor real-time execution. The project seeks new ideas and prototyped techniques in the areas of verification, simulation, monitoring and debugging - both static and dynamic. The primary focus is techniques for safe and non-intrusive monitoring of complex real-time programs. Collaborative research involving industrial partners is pursued to validate and transfer these results.